MRI: ID-Development of a Hybrid Scanning Fluorescence and Sum Frequency Spectroscopy Imaging Microscope

With this award from the Major Research Instrumentation program (MRI), Michael Mason and colleagues from the Department of Chemistry at the University of Maine will develop a hybrid scanning fluorescence (FL) and sum frequency (SF) spectroscopy imaging microscope. The instrument will be constructed by the addition of sample scanning and FL capability to an existing broadband SF spectrometer. The SF NIR pump source will be used to excite SF at the sample interface, while a modulated Argon ion CW laser will excite FL. These collinear sources will give rise to spatially and temporally correlated SF and FL signals which will be separated and individually detected. The instrument will simultaneously measure the fluorescence and sum frequency to yield information about the localized dynamics of a single particle, i.e. protein, and spatially correlated structural information about the bulk material containing the particle. This yields information about the interaction between the particle and the bulk not accessible by any other method. The proposal will initially investigate test projects including the study of membrane domain structure and membrane-membrane interactions, e,g., correlation of the structure and dynamics of lipid and protein molecules within planar supported lipid bilayers. Successful development of this instrument could lead to major breakthroughs in several fields ranging from surface chemistry and biophysics to nanotechnology and cellular biology.
.